Organization of the 2001 Applications of High Field & Short Wavelenghts Topical Meeting

This award provides funding for student participation at the upcoming 2001 OSA sponsored conference on the Applications of High Field and Short Wavelength Sources, to be held in Palm Springs, CA, from 21-24 October, 2001. The funds will be used to waive graduate student registration fees and will aid in defraying travel costs. An expanded poster session at the conference will be dedicated primarily to students